TV411 COOK SMART - Math and Science Recipes for Informal Learning

The Adult Literacy Media Alliance (ALMA), producer of TV411 and the NSF-funded Think Math, will undertake a planning process for the development of a ten part series, TV411 Cook Smart, which will incorporate lessons in math, biochemical and physical processes into a cooking show format. The television series is geared towards low-literate adults and builds on ALMA's prior experience in producing science/math-based programming. The deliverables include a standards-based curriculum outline for the series; outreach and training plans with the project's broadcast partner, Kentucky Educational Television; development of strategic partnerships with community organizations, including Head Start programs and Neighborhood Networks National Consortium; and evaluation strategies to study the impact of the TV411 Cook Smart on adult learners.